Leadership Institutes To Promote Effective Computer Usage InMiddle And Secondary School Laboratories

This four-year project improves middle and secondary school physical science, biology, chemistry and earth science instruction through training in microcomputer-based tools and modern pedagogies. Forty-nine master teachers from eight geographical areas in New York, Pennsylvania and Georgia are trained through two four-week summer institutes. The first institute emphasizes materials development, the second conducting workshops. The teachers have access to previously developed materials and ongoing curriculum development efforts supported during the summers. The teacher leaders, in turn, conduct area workshops for 400 additional teachers. they support and train between six and ten teachers in their area for each of the two years. Moreover, they are available to offer ongoing assistance to the teachers. Matching funds of 35% are provided by the grantee.